Enhancement of a Research-Based Curriculum Through Microscopy and Imaging

Recent progress toward a research-based curriculum in geology emphasizes the use of optical microscopy and the interaction of electromagnetic radiation with matter in the study of geological problems. This project enhances these curricular changes with the implementation of a research-grade petrographic microscope that includes 35-mm photography and video capabilities. Improvements resulting from this project include enhanced demonstration capabilities throughout the course curriculum; greater comprehension of scientific methods and principles by non-science-majors and potential science majors in introductory courses; the exposure of undergraduate majors to modern petrographic techniques that previously were not possible; and the enhancement of independent research projects. The microscope and video/photographic system makes the study of rocks and minerals more appealing to non-science-majors and facilitates the application of rock and mineral studies as a means to understanding the composition and evolution of the Earth, environmental problems, and the origin and evolution of life in introductory courses. Use of the imaging capabilities to demonstrate optical techniques to students in Mineralogy enhances the comprehension of optics theory and techniques resulting in increased student use of optical methods as investigative tools later in the course and in other upper-level courses. The microscope/imaging system is also being used to involve students in interactive laboratory projects in courses in mineralogy, petrology, structural geology, economic geology, sedimentology, and paleontology. Finally, the research-grade petrographic microscope with modern imaging capabilities enhances the quality of undergraduate research publications, presentations, and reports resulting from independent projects, honors projects, and senior capstone projects that are now required for graduation.